SHF: Small: CDSChecker: Model-Checking Concurrent Data Structures under the C11/C++11 Memory Model

Society has long relied on increasing computing power to drive
technological development. Continuing this trend in the multi-core era
will require a large scale migration to parallel software. As an
acknowledgment of the new importance of parallelism in software
development, the 2011 C and C++ standards extended C and C++ with
language support for low-level atomic operations to allow developers
to write portable efficient concurrent data structures.
Unfortunately, implementing concurrent data structures is extremely
difficult to do correctly. Despite the difficulties, we expect that
the potential performance benefits will lure many developers, both
experts and others, to attempt to develop customized concurrent data
structures. Without tool support, this will inevitably lead to
potentially costly failures in deployed software.

This project will explore techniques for efficiently model checking
concurrent data structures under the C/C++ memory model and support
for developers to effectively use a model checker for testing and
debugging code. These techniques will be implemented in the form of a
concurrent data structure checking tool, CDSChecker, that will be
developed by the this project. The project will develop efficient
model-checking techniques for the C/C++ memory model, explore how to
specify the correct behavior of concurrent data structures, explore
how to support testing and debugging of concurrent code, and explore
how to effectively communicate information about concurrency bugs to
developers.